The Dynamics of Organizational Routines

This proposal outlines a valuable new approach to understanding the development of organizational routines. The ability of groups to convert experience into smoothly performed routines is a major source of the productive power of organizations. The process by which learning maps continuing experience into routines, either by reinforcing their existing structure or by transforming them, is a major source of both organizational stability and organizational change. All this has been common knowledge from studies in the last twenty-five years. Yet, there has been little progress in the development of a deeper theory of organizational routines and their dynamics. This proposal analyzes the factors that have blocked progress in understanding routines. It extends recent developments in modeling cognitive processes to provide important new tools for attacking the problems. The proposal presents a research program combining computer modeling with laboratory experimentation and describes the results that can be anticipated from a coordinated program of theory development and laboratory research.